Laboratory Modeling of Geophysical Turbulence

0081808 Linden/UCSD

A study will be made of the interaction of vortices in stratified
rotating flows. The study will consist of laboratory experiments
conducted on a rotating table. Vortices will be generated by pumping
flow in and out through the sides of the experimental tank in a number
of different source/sink configurations. Experiments will be made in
tanks with cylindrical and annular geometries. Sophisticated optical
flow measurement techniques will be used to obtain flow velocities at
a variety of depths. The aim of the study is to build up an
understanding of the rotationally dominated, large-scale turbulence
prevalent in the ocean. Interactions between individual vortices will
be studied, together with the way in which multiple interactions
between continuously forced vortices give rise to mean circulations.